An American-Sign-Language-to-English Recognition and Translation System

This is an award for Phase II of the development of an American Sign Language (ASL) acquisition, recognition and translation system. Such a system could eventually allow deaf signers and English speaking individuals to communicate without the aid of a human interpreter. The Phase II research focuses on several critical capabilities: (1) the quantification of ASL as a spatial/visual language; (2) the acquisition of ASL for internal use by a computer; (3) the recognition of dynamic ASL gestures; and (4) the context-sensitive translation between ASL and English. A proof-of-concept prototype will be built. Machine translation algorithms for ASL-to-English will be developed. Potential intermediate products include: gestural interfaces for computers and home appliances, telerobotic controllers, virtual reality and simulations tools, and ASL research tools.